Synthesis, Structure and Properties of Novel Zeotype Sulfide Frameworks

The synthesis and characterization of novel metal sulfide framework compounds will be undertaken using innovative hydrothermal synthetic techniques. This investigation will include the use of these framework compounds as host materials to stabilize small clusters, and clusters with unusual geometries.